Invited Foundational Papers on Research in Undergraduate Mathematics Education

Researchers in mathematics education are writing foundational papers to be included in the new Conference Board of the Mathematical Sciences series RESEARCH IN COLLEGIATE MATHEMATICS EDUCATION. These papers serve both pure and applied purposes, contributing to the field of research in undergraduate mathematics education and informing the direct improvement of undergraduate mathematics instruction. The dual purposes imply dual but overlapping audiences. Papers focus on learning within particular mathematical domains as well as on more general cognitive process such as problem solving, skill acquisition, conceptual development, mathematical creativity, and cognitive styles. Papers also deal with issues associated with variations in teaching methods, or classroom and laboratory contexts. More broadly, research may address institutional arrangements intended to support learning and teaching; for example, curriculum design, assessment practices, or strategies for faculty development.